SMARTNET: A Teacher Enhancement Program for Precollege Science and Mathematics Education

Sacred Heart University will conduct a three-year science and mathematics staff development program serving grades K-12 in fourteen districts in southwestern Connecticut. The project combines the resources of the well established Project NETWORK of the Fairfield County Public Schools and Sacred Heart's SMART Center. The new title, "SMARTNET: A Teacher Enhancement Program for Precollege Science and Mathematics Education" reflects this combination. The project will improve science and mathematics education, revitalize maturing faculties, and help prepare for desegregation. Content areas include biological sciences, physical sciences, mathematics, and instructional technology. Sacred Heart University, the Fairfield County Public Schools, and the participating districts have contributed an amount equal to 87% of the National Science Foundation request.